Expanding Meteorological Observational Capabilities

The gathering of quality local weather data for undergraduate classroom and student project work has been enhanced by the acquisition of additional new equipment including surface and upper-air wind observing equipment, vertical temperature profile observing equipment, and atmospheric long-wave radiation emission observing equipment. Undergraduate science education is improved through demonstrations and direct experience with field work, thus affording a better understanding of atmospheric processes.